Catching the Perfect Wave: The Application of Adaptive Optics to Optical Interferometry for the Next Generation of Optical Telescopes: Albuquerque, NM; June 28 to July 1, 1998

AST-9731034 ABSTRACT Funding will be used for partial support for a professional meeting sponsored by the Astronomical Society of the Pacific (ASP) to be held in Albuquerque, NM, on Sunday, June 28 to Wednesday, July 1, 1998. Local host organizations for this meeting will be the University of New Mexico and the Air Force Research Laboratory. The meeting will explore the synthesis of adaptive optics and optical interferometers for the next generation of high resolution optical telescopes. The proceedings will be published by the ASP.